CAREER: Mathematical Frameworks and Theory for Conceptual Models in Economics, Ecology and Criminology

Recent advances in criminology, economics, and ecology have led to the realization that to derive qualitative and quantitative understanding of very complex systems and phenomena involved one needs to mathematize many conceptual models developed in these sciences. The overarching objective of this project is to develop mathematical frameworks for such conceptual models and contribute to the qualitative and quantitative understanding of these complex systems. One project will focus on the role that movement has in ecological systems or that redistribution has in economic systems. The objectives are to understand what movement strategies are optimal and why clustering of competing populations work. With rapid shifts in the environment and in the economy, it is crucial to investigate the relative success of different movement strategies to be able to predict which populations will survive under competition. Another project will develop and study models for rioting activity. This will enable us to tease out the most important factors behind the dynamics of different riots. A final project will draw from work in mathematical epidemiology to develop a multi-scale model for crime from a public health perspective, which can help us to test the effect of different policies on the dynamics of violent crimes. This research will provide a quantitative framework and tools that non-technical scientists can use to make significant advances in their work. The models developed here will provide ways to test intervention and policy strategies helping to quantify their effects. These projects will be integrated with an educational plan aimed at a broad range of K-12 outreach activities in collaboration with CU Boulder’s Science Discovery.

This research consists of three projects. The first project aims to use a local and non-local reaction-advection-diffusion framework to understand the optimality of different movement strategies, particularly, in the presence of an Allee effect. The second project will focus on development and study of models for rioting activity. In particular, the PI will study traveling wave solutions, which have been observed in many real-life riots. The final project will draw from work in mathematical epidemiology to develop a multi-scale model for crime from a public health perspective using a kinetic equations framework. The successful completion of these projects will also advance the qualitative understanding of traveling wave solutions and generalized fronts for local and non-local reaction-advection-diffusion equations in spatially heterogeneous environments.